III: Distributed Stream Integration

Declarative, database-style models for programming distributed applications
are becoming widely adopted, in a variety of realms ranging from sensors
to publish-subscribe to network state management. They free the developer
to define high-level queries for the specific data of interest,
without regard to details about data sources, communications protocols,
or synchronization.

As this approach to programming gains momentum, there is increasing need
to abstract low-level stream data source variations away under a uniform
representation, i.e., a view; and to integrate, i.e., conjoin, different
types of stream data from large numbers of sources. Such tasks involve
much more distributed communication and coordination than in traditional
distributed databases or even data stream management systems.
It becomes essential to do in-network computation of the query,
and to optimize the processing of each stream (or few streams) separately,
in a way that considers the topology of the network.

This proposal develops the technologies to support integration of data streams,
including languages for stream schema mappings, focusing on issues relating
to combining distributed messages and maintaining timing information;
techniques for rapidly establishing query computation paths through a network,
for sets of data stream elements that need to be joined and aggregated together;
offline and adaptive, network-aware query optimization techniques for
distributed computation in the network. These techniques will scale
across widely heterogeneous (sensor, wireless, and
conventional) networks, and will be evaluated in environmental monitoring
applications.

The intellectual merit is the development of new techniques for performing
queries across large, highly distributed networks of stream-producing sources;
this increases understanding of the adaptive query processing space when access
costs to data items are non-uniform and query processing requires distributed
communication, and the trade-offs with respect to offline versus adaptive
optimization and relative to optimization granularity. The broader impact
includes the development of distributed stream integration capabilities that
can directly address a number of emerging and well-known challenges in the
network and environmental monitoring domains. The educational component
includes the training of two PhD students, and the teaching of stream data
integration in graduate and advanced undergraduate courses.

Project URL: http://www.cis.upenn.edu/~zives/stream-integration/